Quantitative NDE for Steel Components of Large Structural Systems

This award is the result of the NSF initiative on QNDE of Large Structural Systems. The objective is to demonstrate the use of magnetic hysteresis and Barkhausen measurement technologies in establishing the safety of steel components in large railroad bridges from a practical viewpoint. In particular the growth of fatigue cracks will be emphasized.